The University of North Carolina at Pembroke Robert Noyce Scholarship Program

The University of North Carolina at Pembroke (UNCP) Robert Noyce Scholarship Program is producing 30 highly qualified mathematics and science teachers for southeastern North Carolina through the undergraduate teacher education program and the Masters of Arts in Teaching (MAT) program. As a historically Native American institution and currently one of the most diverse campuses in the southeastern United States, the population of underrepresented minorities from which to recruit exemplary math and science specialists is readily available at UNCP. The project is increasing the number of students entering science and mathematics education and increasing the capacity of STEM professionals to obtain certification and licensure for public school teaching. Recruitment efforts are targeting mathematics and science organizations on the UNCP campus and at community colleges. Support for new teachers includes formal mentoring by a master teacher, an online Internet-based support system for new teachers, and New Teacher Academy workshops.